Initiation of Purification Protocol for Celery Glucan Synthase

This is a Research Opportunities for Women Research Planning Grant, to enable Dr. Sloan to get preliminary data concerning the feasibility of obtaining useful amoungs of glucan synthase from suspension cultures of celery cells.